A Longitudinal Investigation of the Selection, Management, and Performance of Technological Innovation Projects: A Five Year, Multivariate Study

The intent of this research is (1) to attempt to describe actual innovation processes from inception to completion and (2) to develop descriptive models of R&D project initiation and management. These will distinguish between "technology driven" and "market driven" innovations.